Planning Proposal for the CISE Institutional Infrastructure Program (II-MI)

Southern University will undertake a one year interdisciplinary self assessment and planning project. The objective is to evaluate present potential and identify researchers with common areas of interest with the aim of preparing an implementation grant application for the Computer and Informations Science and Engineering (CISE) Institutional Infrastructure Program. Plans are to be developed to enhance the instructional and research capabilities of minorities in fields supported by the NSF CISE directorate. The current areas of strength at SUBR and the maximization of resource utilization, including a multidisciplinary approach, are two major considerations throughout the planning process. A description of the planning project management and the duties, responsibilities and qualifications of key personnel is included. Also included is a framework for the establishment of a CISE advisory committee and the CISE administration during the implementation stage.